DDEP: Hybrid Tunable Photonic Crystals using Smart Gels

OISE-0738323 (Neogi, University of North Texas
DDEP: Hybrid Tunable Photonic Crystals using Smart Gels.

ABSTRACT

This award supports the doctoral dissertation of the PI's advanced graduate student,
Mr. Brett W. Garner, in physics, specifically to augment his research in the development of a hybrid tunable photonic crystal in nanophotonics with three-months time in Japan in the lab of Professor Kiyoshi Asakawa of the Tsukuba Advanced Research Alliance Center. The research makes use of recent advances in nano-fabrication and advanced optical characterization techniques at TARA Center, a world-class photonic crystal and nanoscale fabrication facility. Collaboration with Professor Asakawa's group will enable the student to perform experiments required for the fabrication and characterization of the hybrid photonic crystal, and strengthen long-term collaboration between University of North Texas and University of Tsukuba in the area of nanophotonics.